Empowering teachers through VideoReview

This project represents a collaboration between TERC and IntuVision to develop a video recording and analysis system called VideoReView (VRV) that allows grade four science teachers to record, tag, and analyze video in their classroom in real time. The system will contain a number of features---such as a sophisticated system of tagging and the automatic detection of important video segments---designed to speed and assist the teacher in its use. The investigators will then study and enhance the system in the context of professional learning communities of teachers. The system is expected to enable teachers to examine their own teaching, and that of others, in a much more dynamic and specific way and to integrate video into their ongoing structures of professional learning. To date, video analysis of teaching is out of the reach of ordinary teachers. If successful, this research could change the way teachers engage in their own profession and their understanding of, for example, student thinking and argumentation in science---something emphasized in the Next Generation Science Standards---but previously more difficult to do without being able to replay and refine teaching episodes.

The complete VRV System will be tested with 18 Grade four teachers and approximately 400 students from six schools in the Newton Public School System in a Boston suburb. The emphasis of the study will be on the ability of teachers to use the system with little outside assistance, means of enhancing its features and usability, and its integration into professional learning communities. A mixed methods research design will be used that includes surveys and interviews. The study outcomes will be disseminated through publications and conference presentations.